UNIX Hardware for the Interactive Analysis of Meteorological Data (UNIDATA)

9224283 Knight The proposed UNIX computing system will provide enhanced capabilities for meteorological research and classroom teaching. To provide students with an up-to-date education and expose them to state-of-the-art research facilities, the PIs propose to provide experience in using UNIX systems for atmospheric research. ***